Precision Measurements in Intermediate Energy Physics

Our research is centered on the study of the properties of subatomic
particles called muons. Muons are easily produced at particle
accelerators, and they are a major component of cosmic rays at the
surface of the earth. According to all experimental evidence they are
the same as electrons except that they are 200 times heavier, and they
are radioactive. It is a great mystery why muons exist at all.

Like the electron, the muon can be thought of as a sphere which spins on
its axis. It is also a magnet, with the north pole pointing along the
spin axis. For a number of years, we have been doing an experiment to
measure the strength of this magnet to very high precision. The value
of this quantity is very sensitive to the spectrum of particles; if
there are new, as yet unseen particles, then the value will be altered
from theoretical expectations. We have seen a deviation from the
expected value which is interesting but not yet big enough to be
convincing evidence of new physics. We are proposing further
measurements to sharpen the comparison between theory and experiment.
At the same time, we are mounting major experiments to investigate other
parameters of the muon: its lifetime, its electric dipole moment, and
the probablility that it will decay directly into an electron without
the usual accompanying neutrino. The last process has never been
observed, and is expected to be very rare. The lifetime experiment is
well under way, while the other two experiments are in development.